2012 Graduate Climate Conference; Eatonville, Washington; October 26-28, 2012

This award will partially support the 6th Graduate Climate Conference at the University of Washington from October 26-28, 2012. Specifically, the award will be used to support the travel, meals and lodging costs for 30 US graduate students to participate in the conference.

The Graduate Climate Conference is an annual event that provides students with a discussion forum on all topics of climate change research - including atmospheric, biological, earth and ocean sciences - and allows the students to see how their own research fits into this breadth of climate research activities. The workshop provides a relaxed environment for interactions with individuals at a similar early career stage and the opportunity to develop a network of collaborative, interdisciplinary relationships that will prove beneficial throughout their careers.